Revise Northern Arizona University's Secondary Science Teacher Training Program

This three-year project will completely revise, and re-do, the Northern Arizona University secondary science teacher training program. This will be done by teachers, educators, and scientists working cooperatively to further develop and implement already planned changes. Nine semester hours of science courses designed specifically for the preservice teacher will be implemented. The traditional pattern of professional preparation that requires a prescribed sequence of courses will be revised. The professional training will be replaced by a sequence of experiences designed specifically for preservice science teachers, and taught by teams of education and science personnel. The revisions in the science training are designed to provide the students with opportunities to: investigate the interrelationships among science-society-technology; study the contributions of the southwestern cultures to science; formally consider how to appropriately translate the science content to the secondary classroom; become competent in laboratory skills performed in the secondary class; and, become familiar with literature in science content and education that will be of assistance in teaching. The professional training will: continually emphasize the application of the professional theory to science teaching; provide numerous and immediate opportunities for the student to apply the professional theories in science classrooms; provide a planned student teaching experience with specific experiences and tasks in which all student teachers will engage; provide time for the student to analyze and begin to formulate his/her philosophy of science teaching; and, provide time for the students to work on curriculum development for his/her first teaching position. The project has a number of innovative aspects that are designed to enhance the faculty of science concerning the problems of teaching and learning science. The faculty will engage in an ongoing seminar with leading consultants in research in children's learning and in teachers' teaching of science. In addition, they will be engaged in a faculty exchange program with experienced teachers in schools in Arizona. The University of Northern Arizona will cost share approximately 28% of the total budget for the project.